Behavior of Marine Clays Under Large Strain with Wave and Tsunami Loadings

The research proposes to investigate the behavior of marine clays under large strains with wave and tsunami loadings. The wave induced forces have been continuously transporting soft sediments from shallow water depths to deeper part of the ocean. It is proposed to examine the stability of the marine clays by subjecting them to similar stress paths and damage caused by the waves. A special testing device will be used to subject the clays to circular stress paths which can not be applied in conventional available apparatuses. Additional tests are proposed to relate Plasticity index, overconsolidation ratio and anisotropy of clay to coefficient of permeability. Finally an effort will be made to develop or modify and incremental constitutive model which can simulate the effect of rotation of principal stress direction. The International Workshop held at Case Western University on July 22-24, 1987 clearly indicated that none of the existing constitutive laws can predict that behavior under such a stress path.